Community College Conversation: "What it Means to be Educated in the 21st Century"

Following an earlier conversation on "What it Means to be Educated in the 21st Century", participants composed of educators, business and industry, government and others will continue the conversation. The broader impact is that the dialog on the nature of education and the changes needed in order to maximize the benefits to students and society will promote those changes by spreading the discussion. This brings together the many groups who are concerned about the issue and are already working on positive changes. A transcript of the conversation will be provided to NSF to be incorporated into a report on this and other conversations, including a culminating conversation during spring 2005.